Conference on "Cosmic Connections"; April 17-23, 2005; Quarrata, Italy

Support for the Conference-"Cosmic Connections"

This proposal is a request for support to help cover the costs of organizing the conference "Quantum Connections". It will take place from April 17-23, 2005 in Villa La Magia, in Quarrata, Italy and is organized by UCLA and SNS-Pisa. The conference will focus on matter-antimatter asymmetry, dark matter, dark energy and alternative models of inflation. There will also be a public lecture on cosmology and particle physics. The funds will be used entirely to support graduate students, Post-docs and junior faculty who otherwise could not afford to attend the meeting.